Symposium on the Use ofCentrifuge Modelingin Earthquake Hazards Mitigation

The objective of this symposium is to expose other researchers, agencies, industry, and advanced graduate students to the use of dynamic centrifuge modeling in the study of earthquake hazard mitigation. These applications include the mechanisms causing failure in soil masses during earthquake- induced ground motions, and the verification of techniques used to analyze the dynamic behavior of soil and soil-structure interaction under these conditions. Geotechnical centrifuge model experiments are used to simulate the effects of the earth's gravity for cases where gravity effects are important; the examples considered here occur in the deformation of soil masses. Recent centrifuge model tests have verified or expanded upon the use of geotechnical centrifuge model tests in earthquake engineering research; namely to study the earthquake response of dams containing liquefiable soils, the base motion tests in earth dams, the liquefaction behavior of soil masses, the mechanism of flow slides, the stability of reinforced earth embankments, soil-pile interaction, and soil-pile-building interaction. The objective of this workshop is to present these results quickly to the earthquake engineering community. The lecturers are researchers actively involved in developing these new techniques.